Enhancement and Maintanance of the Marine Seismic Processing System SIOSEIS

SIOSEIS is a software package used for enhancing and manipulating marine seismic reflection and refraction data on UNIX computers. As with all software, SIOSEIS must be enhanced and maintained as advances in computer technology and seismic imaging are made.